Cylindrical Algebraic Decomposition and Quantifier Elimination

This project continues investigation of the cylindrical algebraic decomposition (CAD) technique. This technique, developed in 1975 for quantifier elimination in the elementary theory of real- closed fields, has been continually improved in the last twenty years. A vast number of mathematical problems can be expressed in this theory and, potentially, solved via quantifier elimination. CAD has many applications, including control engineering, connectivity and path finding problems. Major improvements are also being made to the algebraic algorithms needed for CAD, including polynomial resultants and greatest common divisors, polynomial factorization, polynomial root isolation and refinement, and computations with algebraic numbers.